Adanced Research Workshop on QCD Hard Hadronic Processes; St. Croix, Virgin Islands; October 8-13, 1987

An international workshop entitled "QCD (Quantum Chromodynamics) Hard Hadronic Processes" will be held at St. Croix in the U.S. Virgin Islands on October 8-13, 1987. This workshop is part of NATO's (North Atlantic Treaty Organization) program to support Advanced Research Workshops. NATO is providing 990,000 Belgian Francs (approximately $22,000) in support of the workshop. The purpose of the workshop is to review the state of knowledge of processes involving energetic collisions between elementary particle physics in the frame work of the current theory of the strong interaction, QCD.